Mineral-Water Geochemistry and Proton Nuclear Magnetic Resonance (1HNMR) in Porous Sandstones

The need to understand the physicochemical environment of solution-filled pores in rocks has geochemical implications for solute transport and mass transfer between solid and solution phases and petrophysical implications for formation evaluation and magnetic resonance imagining. The proposed project will help build that understanding through an investigation of proton nuclear magnetic resonance relaxation in sandstone pore-filling solutions. The overall goal of the project is to quantify the effect of solution composition on relaxation rates. Both intact rock cores and disaggregated grain packs will be used. The mineral surfaces will be consistently pre-conditioned, and the materials will be well-characterized, with determinations of rock physical properties (porosity, pore-size distribution, surface area: volume ratio, permeability, paramagnetic susceptibility, and BET surface area) and geochemical properties (mineralogy, extractable paramagnetic species, and cation exchange capacity). Experimental controls on permeability and relaxation rate include solution composition, surface pre-treatment, temperature, and for the grain packs, grain size and mineralogy. The data will be interpreted to provide three types of quantitative information: (1) the influence of different surfaces on relaxation, (2) the influence of solution composition on relaxation, and (3) relaxation mechanisms (with activation energies for bulk-solution and surface-induced relaxation processes.